Arithmetic Functions and Primes

Harmonic Analysis is to be enhanced with combinatorial ideas and applied
to develop representations by products and quotients evaluated at the
primes. Immediate aims include the complete multiplicative generation of
the positive rationals by shifted primes, and the solution of a thirty
year old problem of Katai concerning sums of additive functions on
arithmetic progressions. An ultimate aim is the celebrated problem of
Goldbach and the infinitude of twin primes. The value distribution of
primitive roots is also to be studied.

The project aims to develop in number theory a flexible general theory of
arithmetic functions strong enough to attack certain classically
difficult problems. All three of the topics to be considered directly or
indirectly involve the multiplicative generation of rationals by given
rationals of a restricted form. Positive results have immediate
relevance to the construction of algorithms to factorise integers and to
the theoretical study of encryption based upon the difficulties of
factorising large numbers.